Design of Chemical Processing Structures and Operating Procedures for Safety and Reliability

Operating procedures have a strong impact on the performance of chemical processing systems. These operating procedures must ensure safe and reliable operation by incorporating features such as verifiability of procedure steps and satisfaction of quality constraints. Operating procedure synthesis needs to be complemented by the availability of appropriate flowsheet structures which provide the necessary infrastructure for processing that satisfies the required specifications. Relevant structural characteristics may be equipment redundancy, presence of auxiliary equipment, bypass and purge lines and other structures whose function is to allow safe and reliable transitions from one operating state to another. This project is aimed at the simultaneous design of both an economically viable chemical manufacturing process and the operating procedure for its safe and reliable operation. The PI's strategy introduces structural actions (operators) as options for producing high integrity sets of operating procedures for chemical processing systems, allowing synthesis of operating procedures in otherwise infeasible situations. The incorporation of "stationary states" in the original flowsheet is used to increase process flexibility and add modularity and verifiability to the operating procedures. The methodology requires as input: the initial flowsheet description, local and global constraints, the initial and goal states, possible procedural and structural actions, a unit model library, and safety/reliability and economic evaluation functions. It produces sets of process flowsheets and corresponding operating procedures. The methodology will be checked against actual industrial test cases.